Space Weather: The Continued Operation of the Bruny Island Radio Spectrometer

The operation of the Bruny Island Radio Spectrometer will be secured for the next five years. This facility makes radio observations between 3 MHz and 47 MHz, and has pioneered the use of modern digital techniques to avoid and largely excise the very strong terrestrial radio interference that is normally prevalent in this frequency band. It is the only instrument in the world that bridges the gap between low frequency solar radio observations made from space and the higher frequency observations made from the Earth's surface. As such, it will continue to provide unique observations capable of tracking interplanetary shock accelerated particle events between where the space-based observatories cutoff and where the ground-based receivers begin. Ancillary activities will address how the observed type II and type III radio bursts are related to the generation of solar energetic particles.